Ship Technicians

Willis 9400704 Oregon State University (OSU) requests renewed funding for shipboard technician activities associated with the research vessel WECOMA, a 177-foot vessel. The WECOMA is owned by the National Science Foundation and is operated by OSU. In calendar year 1994, the WECOMA will support a total of 109 days of NSF-funded research. Most cruises will be located in the Northwest Pacific. The OSU technicians will be responsible for operating and repairing instruments while at sea, maintaining instruments ashore and assisting with scientific operations as necessary before and after cruises.